Quantum Wire Nanostructures in Multiple Quantum Well OpticalWaveguides: Enhanced Nonlinear Optical Interactions

This is a proposal for incorporating quantum wire nanostructures into gallium aluminum arsenide multiple quantum well (MQW) optical waveguide structures in order to enhance nonlinear optical interactions. The primary technique to be pursued for fabrication of quantum wires is to use focused ion beam (FIB) direct writing onto MQW optical waveguides followed by rapid thermal annealing to induce impurity-induced layer or compositional disordering (mixing). Use of this FIB mixing technique to define and form channel optical waveguides is also planned. In addition to using FIB mixing, electric field-induced periodic surface confinement in multiple quantum well regions to form quantum wires will also be investigated. Quantum wires are expected to provide a stronger nonlinear response while the presence of the optical waveguide provides high optical power densities with low input power over long propagation lengths. These combined effects may make the nonlinear interactions more efficient at lower power levels and thus suitable for applications. Extensive experimental characterization will be performed on GaAlAs MQW samples, including scanning tunneling and atomic force microscopy (STM, AFM), photon scanning tunneling microscopy (PSTM), focused ion beam based sub-micron secondary ion mass spectroscopy, cross-sectional transmission electron microscopy (xTEM), spatially resolved photoluminescence and Raman spectroscopies, and four-wave mixing and pump-probe experiments on the picosecond time scale.